Binary Star Speckle Interferometry

9416994 McAlister Drs. McAlister and Hartkopf at Georgia State University will continue a program of high angular resolution observations of binary star systems using speckle techniques. Binary stars are the only source for the fundamental determination of stellar masses and can provide direct determinations of stellar distances, radii, luminosities, and effective temperatures. The Georgia State University program of binary star speckle interferometry began in 1975 and has continued its original emphasis on obtaining significant numbers of well calibrated observations at large aperture telescopes. These data are being used to greatly improve the orbital elements of known binaries and to calculate the orbits of resolved spectroscopic systems and other newly discovered binaries.